A Modular Connectionist Architecture for Control

This grant will support research in machine learning for control of nonlinear dynamical systems. Drs. Jordan and Jacobs will study multinetwork connectionist architectures for discovering picewise control strategies, comparing alternative decompositions of control tasks, and learning multiple tasks simultaneously. They expect multinetworks to show faster learning rates, better generalization, more interpretable representations, and more efficient use of hardware than single neural networks.